A study of morphologies in block copolymers and Langmuir films

Morphology patterns that appear in complex materials are
intimately related to their physical properties. Examples include
lamellar, cylindrical, and spherical patterns in block copolymers,
neutral and charged Langmuir monolayers, and smectic liquid
crystal films. The investigator and his collaborators analyze and
predict morphology patterns based on mathematical models derived
from first principles of statistical physics. They develop
techniques to deal with nonlocal constitutive relations, singular
perturbations, and critical eigenvalues. These mathematical
phenomena are proved to be the reasons behind self-organization
and pattern formation. The investigator finds effective reduction
methods that accurately simplify the original infinite-dimensional
problems to manageable finite-dimensional ones. The investigator
also studies the dynamic phenomenon of pattern nucleation in
materials by finding and characterizing some unstable solutions to
the Euler-Lagrange equations of the free energy. The project
expands our knowledge of singularly perturbed variational
problems. It enhances classical theories such as Gamma
convergence.

Complex materials, such as block copolymers, are used
everywhere. The polyurethane foams used in upholstery and bedding
are composed of multi-block copolymers known as thermoplastic
elastomers that combine high temperature resilience and low
temperature flexibility. Common box tapes use triblock copolymers
to achieve pressure-sensitive adhesion. Block copolymers are
blended with asphalt in road construction to reduce pavement
cracking and rutting at low and high temperature extremes. This
project seeks to deepen our understanding of the mathematical
theories underlying these systems. It produces effective methods
that characterize and predict the mechanical, optical, electrical,
ionic, barrier, and other physical properties of these materials.
They help today's synthetic chemistry technologies to produce
exquisitely structured materials to meet an ever rising demand
from civil infrastructure and manufacturing.